Mathematical Sciences: Probability Measures on Vector Spaces: Basic Results and Application

This research is in the area of probability and involves the limit theorems for real and vector valued random variables with emphasis on the law of the iterated logarithm (LIL) and the Gaussian central limit theorem (CLT). In particular, problems related to the CLT and LIL motivated by trimming and self- normalizations will be studied. The second order behavior of Gaussian random vectors and limit sets for random samples of processes, as well as coverage problems, will be examined. Other items under consideration concern vector valued partial sums, empirical processes, and the rates of growth, local asymptotics, and rates of escape for Banach space valued Brownian motion. The central theme in probability, and throughout its diverse applications to problems in engineering, physics, and statistics, is the study of limit theorems for partial sums of random variables in both finite and infinite dimensional settings. Of primary importance is the strong law of large numbers (SLLN), the central limit theorem (CLT), and the rate of convergence for the SLLN, namely the law of the iterated logarithm (LIL). This research project will be concentrated on the study of these limit theorems.